Rural Systemic Initiatives In Science, Mathematics and Technology Education

Providing and instituting viable outcomes for its students of the 21st Century, Fort
Berthold Schools and Fort Berthold Community College recognize systemic reform
as timely and appropriate for reservation schools. Fort Berthold Community College's
primary commitment as a Phase II participant to systemic reform within the Fort
Berthold Reservation Schools is to continue the established improvement of
mathematics, science, and technology education.

Fort Bethold Community College's gains within its home reservation will continue
and maintain its current success through cooperative arrangements with tribal, state,
private and federal efforts. The effort will promote consistent and appropriate policies,
community participation, tribal council education and commitment and fund resourse
expansion. All measures of achievement and directional assistance will be closely
evaluated, assessed, documented and through test results, data compilation and reports.